Travel: NSF Student Travel Grant for 2022 IEEE Symposium on Security and Privacy (IEEE S&P)

The IEEE Security & Privacy Symposium is a top-tier venue for cybersecurity and privacy research, and has been for much of its 40-plus-year history. Student attendance at S&P is an important part of graduate education in cybersecurity. After two years of virtual meetings due to COVID, the 2022 Symposium will be held in San Francisco, CA and consist of approximately 80 technical papers and Systematization of Knowledge papers, which provide valuable background to students who are learning the literature.

This grant provides travel support to encourage participation in the IEEE Symposium and its Student Program Committee by students who would normally find it difficult to attend. Criteria for selection include evidence of a serious interest in the field, as demonstrated by coursework and/or project experience. Organizers encourage participation of women and students from other under-represented groups.